NSF Young Investigator

This NYI award will support the research of a promising and accomplished young investigator. His research will include research and development of Gas Microstrip Detectors for use in Elementary Particle Physics experiments at the SSC and B factories, and analysis of data obtained with these detectors, particularly decays of the b quark at the Cornell Electron Storage Ring.